Tradeoffs and Optimality Issues in Search Processors

This project adds insight, design techniques, and analysis tools to the area of massively parallel VLSI computation for special-purpose search processor. Analyses for the speedups offered by associative memories are carried through appropriate modeling of the delays associated with instruction and data broadcasting and the realization of global reduction operations on response tags. Pipelined systolic associative memory organizations are developed so that they are truly scalable (up to sizes required for realistic applications in the foreseeable future) within the potentials and constraints of the VLSI technology and to evaluate their cost- effectiveness. Tree-based, hypercube-based, and mesh-based VLSI search processors having sublinear number of processors (with respect to the number of keys or records) are examined and various design alternatives, optimality issues, and realization tradeoffs are analyzed .